Support for the 8th International Workshop on Discrete Event Systems-WODES '06. The workshop will be held on July 10-12, 2006 in Ann Arbor on the campus of University of Michigan

B Project Summary
Support is sought from NSF to help with the organization of the 8th International Workshop on Discrete
Event Systems - WODES06, to be held in Ann Arbor on the campus of the University of Michigan, July 10-
12, 2006. WODES is a bi-annual series of conferences entirely devoted to the field of discrete event systems.
It is attended by 100-150 researchers (primarily from academia), with considerable international diversity.
All past seven editions of WODES have been held in Europe, every other year since 1992. WODES conferences
are not financially sponsored by any technical organization. In the past, host institutions have been
sponsoring the conference.
WODES06 is the first edition ofWODES to be held in the US. It will provide researchers from different
fields (control theoreticians and control engineers, software engineers and computer scientists, operations
research specialists) with an opportunity to exchange information and new ideas, and to discuss new developments
on the theory and applications of discrete event systems. The conference will be particularly
attractive to US students in these fields who have not been able to attend WODES in the past. It offers
a unique opportunity for them to get exposed to the latest research trends in the multidisciplinary area of
discrete event systems. The organizers of the conference intend to offer reduced registration rates to student
attendees in order to encourage their participation. Moreover, the organizers are making a special effort
to solicit participation of industrial researchers at the conference through industrial sponsorship, invited
sessions, and software demonstrations.
Broader Impacts: WODES06 will have broad educational impact on the US graduate student community
in control engineering, embedded systems, software systems, and operations research as well as broad
impact in bringing together theoreticians and practitioners with interest in modeling, analysis, verification,
diagnosis, control, optimization, and simulation of discrete event systems.